Computer Science, Engineering, and Mathematics Scholarships Program

Using NSF funds and its own matching funds, DePaul University's School of Computer Science, Telecommunications and Information Systems (CTI) will create a new program which will increase the numbers of low income undergraduate students in the study of computer science. This program will award scholarships to students recruited through innovative outreach efforts based on collaboration with Information Technology industry participants. The program will also involve internships with Information Technology companies and mentoring by professionals, which along with solid curricula and financial support will provide a foundation for students' academic and professional success.